Deracemization Reactions of alpha-Lactams: Synthesis of Optically Active alpha-Amino Acids and Peptides

Boston College The starter grant award to Boston College supports the research of Professor Scott J. Miller. The research focuses on the design and synthesis of systems for the de novo asymmetric synthesis of amino acid derivatives based on the principle of deracemization. Using the methodology of asymmetric organic synthesis, rapidly epimerizing alpha-lactams are subjected to reactions with optically pure reagents. Differential rates of reaction of each alpha-lactam enantiomer with the chiral reagent result in the dynamic resolution of racemic mixtures to allow for complete conversion to optically pure products. This research will provide a new reaction methodology for synthesis of an important class of natural and unnatural products; namely, optically active amino acids and peptides. The work advances not only the field of asymmetric synthesis, but also artificial enzyme design and medicinal chemistry through improved acess to important molecular building blocks.